Conference on Regional Center/High Speed Image, Signal Processing

Technological advances in many fields are increasingly dependent on high-speed image generation and interpretation. This need is being recognized in the funding priorities of industry and government. The higher funding priority opens the possibility that a regional Industry/University Cooperative Research Center on High-Speed Image/Signal Processing may be feasible and viable. This project is funding an Industry Planning Meeting to study the feasibility and viability of a regional Industry/University Cooperative Research Center on High-Speed Image/Signal Processing to be operated by the University of California, Irvine, University of California, Santa Barbara and the University of Southern California. The universities have drafted a prospectus of the Center's research and operations that will provide a basis for study at the planning meeting to occur in October, 1988. The Co-Principal Investigators and their colleagues are recognized experts in their fields and have the necessary industrial interactions to run this meeting. This project was coordinated with Drs. J. Lehman (MIP) and Y.T. Chien (IRI). The Program Manager recommends the University of California, Irvine be awarded $8,990 for one (1) year for this planning meeting.